RUI: Dynamical, Collective and Electromagnetic Response in Relativistic Heavy-Ion Reactions

This proposal concerns a one-year program of research into nuclear reaction dynamics at intermediate and high energies. The research, which will be conducted primarily at Lawrence University, will focus mainly on the nuclear equation of state, response of particle interactions to the nuclear environment, collective directed and radial flow, resonance production, propagation, and decay, features of phase transitions in nuclear matter, relativistic quantum field theories at zero and finite temperature, non- equilibrium effects, electromagnetic radiation from nuclear and sub-nuclear degrees of freedom and dynamical aspects of quark-gluon plasma.